Development of A Nonlienar Multivariable Control System for Sheet Forming Processes

9313237 Ousterhout In this research project, innovative analytical techniques are developed for modeling and controlling sheet forming processes by combining closed-loop control theory with real-time process measurements. The procedure leads to optimum binder force profile in both space and time, and increases the level of in-process control and disturbance rejection towards significantly improving accuracy, part-to part consistency and flexibility. The project includes the design, fabrication and testing of a deep-drawing apparatus with a multivariable force controlled binder to test the analytical methods, and to assess the performance of the multivariable force controlled binder over a wide variety of materials and part configurations. The variable force controlled binder has the force control characteristics to regulate the binding force, and the capability to generate a variable force profile along the perimeter of the binder that changes with position and time. The results of this research lead to the development of theory and establishment of technology for improving accuracy and flexibility in sheet forming process. ***